Transforming our understanding of DIC Photoproduction in Oceanic Waters

Photoproduction describes chemical reactions which use the energy of sunlight to change the molecular structure of one product to another. This process has been shown to play an important role in the coastal ocean changing dissolved organic carbon (DOC) to dissolved inorganic carbon (DIC); however, minimal information is available on the extent to which this process takes place in the open ocean. The main obstacle to obtaining DIC production data for open ocean waters is the inability to measure the small DIC production rates against the large background of seawater DIC. Currently the most common method for high precision measurement of DIC production has unacceptable detection limits to resolve this difference. Researchers from the University of Georgia have developed MoDIE (Moderate DI13C Isotope Enrichment), a novel means of determining low levels of DIC produced in the open ocean with high precision. As part of this project, they plan to refine their MoDIE method and obtain measurements of DIC photoproduction in open ocean waters (i.e, South Atlantic Bight, North Atlantic Ocean and North Pacific Ocean subtropical gyres). Results from this work will provide improved estimates of DIC photoproduction in the open ocean which in turn will improve existing models of carbon cycling.

The broader impacts of this project are particularly exciting. The proponents plan to create an exhibit at the University of Georgia Marine Extension public aquarium to teach the general public about ocean color and marine carbon cycling. In addition, they plan to participate in the Skidaway Institute for Oceanography “Marine Science Day” open house to share their science with the public and incorporate results into their class curricula. One of the researchers is a first-time investigator who plans to incorporate education and training of undergraduate and graduate students in the project. Finally, undergraduate interns from underrepresented groups will be involved in the project to give them research experience and help with retention in a science discipline and career.

Photoproduction of dissolved inorganic carbon (DIC) from dissolved organic carbon (DOC) has been shown to be a non-negligible process in the marine carbon cycle; however, it is still unclear the extent and importance of this process to the overall carbon cycle in the open ocean (blue water chemistry). The major issue causing this uncertainty is the lack of available methods with acceptable detection limits. The high background of DIC in the open ocean (2mM) makes it difficult to measure the photoproduced portion of DIC when the detection limits are high. Additionally, the current best method requires pre-stripping samples of background DIC, which could introduce unnecessary errors by over manipulating samples. This project will develop a new method called MoDIE (Moderate DI13C Isotope Enrichment) to get accurate measurements of DIC photoproduction in the open ocean. MoDIE works by enriching a sample in 13C and monitoring the dilution of DI13C under irradiation using liquid chromatography-isotope ratio mass spectrometry (LC-IRMS). By removing the need for pre-sample treatment and introducing a highly precise measurement technique, the researchers will be able to compare their techniques with published methods of photochemical DIC detection and put forth more accurate estimate of marine DIC photoproduction in the global ocean. This will greatly improve marine carbon cycle models.